U.S.-Italy Cooperative Research: The Foundations of Continuum Mechanics and Untypical Problems

This U.S.-Italy award will support Professors Clifford Truesdell, Reza Malek-Madani, and John Pierce of Johns Hopkins University to collaborate with Italian mathematicians under the leadership of Prof. Gianfranco Capriz of the University of Pisa. The investigators intend to work on the recent reorganization of the mathematical foundations of continuum mechanics begun by Professor Truesdell. In the process, they expect to solve associated problems in topology, functional analysis, and geometric measure theory. Among the topics to be studied are classes of solutions of Navier-Stokes equations, the formation and stability of singularities in systems of quasilinear elliptic and parabolic differential equations that govern the deformation of nonlinear viscous materials, the study of equilibria for highly symmetric boundary value problems which arise in nonlinear elasticity, and various aspects of the mathematical theory of singularities that lend themselves to continuum mechanics and applied mathematics. Researchers on both sides are leading experts on various aspects of continuum mechanics and their collaboration is expected to lead to new approaches in the field. This work is jointly supported by the Solid Mechanics and U.S.-Italy Programs of NSF.